NSF Young Investigator

9357854 Penry The roles that marine organisms play as mediators of physical and chemical processes and how they can affect the rates and extent of organic matter cycling and degradation in the ocean are not well defined. In the ocean, planktonic protozoa are important consumers and remineralizers of organic matter. Particle consumption is a primary pathway of degradation, and this project focuses on modeling and measuring digestive and egestive processes in marine protozoans. Dr. Penry plans to apply a chemical engineering approach, i.e., chemical reactor theory, in the investigation of the roles of digestion and egestion by marine protozoan in particle aggregation and organic matter cycling. Although protozoa do not have traditional guts, digestion theory is still applicable. Gut reactor models are simply descriptions of particle processing patterns, and the reactor can be a gut or a single cell. Quantifying these processes and how they vary in response to changes in food resources is necessary to understanding the roles of protozoan grazers in the upper ocean. ***